Subelliptic Jets and Applications

A major part of the success in the linear and quasilinear theory of
partial differential equations is based upon interpreting
derivatives in the generalized sense of distributions, allowing
for a more powerful calculus. However, Distributions do not seem,
in general, well suited to non-linear problems because they cannot be
multiplied. "Jets" are generalized (local) pointwise derivatives that
allow for the interpretation and calculation of non-linear functions
of derivatives. In this proposal, the PI presents a project to extend the notion of jets from the Euclidean or Riemannian case to more general state spaces. Typically, in these spaces higher derivatives with respect different parameters do not commute, as in the Euclidean
case, but rather satisfy more complicated algebraic relations. Jets adapted to the geometry of a state space endowed with a family of vector fields satisfying a
non-degeneracy condition are called "subelliptic jets". Basic analysis topics like Taylor developments and maximum principles have to be adapted to conform to the new
subelliptic geometry. The PI proposes to study Hamilton-Jacobi
equations, to provide with a natural approximation procedure
for semi-continuous functions, and to explore notions of "subelliptic
convexity" to help formulate appropriate second derivative
subelliptic estimates.

The derivative is a basic tool in mathematical analysis, used to
measure the growth and decay of functions. Knowledge of the
derivative of a function allows for its recovery by means
of integration. When trying to model complex scientific
phenomena it is often necessary to write down equations
satisfied by derivatives, and derivatives of derivatives,
of functions with respect to several parameters. These equations are called
partial differential equations. If these equations are linear,
a well developed theory exists to study their solutions.
Much less in known in the more interesting case of nonlinear
equations, although when the state space is Euclidean, there
is vast fully-nonlinear theory developed in the last twenty years.
However, in applications coming from Control Theory, Robotics and
Finance, very often we find derivatives which do not commute. The analysis of nonlinear
operator of these derivatives is the main object of this project. The significance of this proposal relies in the interconnection between areas of classical mathematical analysis and applied mathematics as well as the use of computational tools not available until now in mathematical analysis.